Relative hyperbolicity and asymptotic invariants of groups

This project is devoted to the study of relatively hyperbolic
groups and their applications in low--dimensional
topology. It consists of three main parts. First part deals with
small cancellation theory over relatively hyperbolic groups.
Namely we intend to use methods elaborated by the PI to construct
new groups with 'exotic' properties that solve some long--standing
problems in the classical theory of groups. The second part is
motivated by the Virtual Haken Conjecture and is based on a
generalization of Thurston's hyperbolic Dehn surgery theory in the
context of relatively hyperbolic groups. The third part concerns
new results about group embeddings. The ultimate goal here is to
obtain a relatively hyperbolic version of the Higman embedding
theorem. Our approach to these problems is based on a new methods
related to asymptotic and combinatorial analysis of van Kampen
diagrams.

The notion of a relatively hyperbolic group was first proposed by
Gromov in 1987 to generalize many examples of algebraic and
geometric nature. Since then the theory has been elaborated from
different points of views and now it is one of the most prominent
parts of the group theory. The class of relatively hyperbolic
groups encompasses many examples of interest such as fundamental
groups of finite volume hyperbolic manifolds, geometrically finite
convergence groups, mapping class groups, fully residually free
groups, etc. Rather than just generalizing the theory of
hyperbolic groups to the relative case, this project is aimed at
the study of new and sometimes unexpected phenomena which are
invisible in the context of ordinary hyperbolicity. The close
interaction between the theory of relatively hyperbolic groups and
geometry, low-dimensional topology, the theory of dynamical
systems, provides a rich source of problems and motivations for
our project.